Modern Aspects of Complex Geometry

This award provides funding to help defray the expenses of participants in the conference "Modern Aspects of Complex Geometry," held May 14-17, 2015, on the campus of the University of Cincinnati. Conference web site: www.artsci.uc.edu/departments/math/complex_geometry_conference.html

This is a conference in the general area of geometric function theory. The event seeks to focus attention on and highlight connections between a variety of topics, including the theory of quasiconformal mappings, mappings of finite distortion, potential theory, analysis on metric spaces, and Teichmuller theory. The conference program provides ample opportunity for graduate students, postdocs, and other young scientists to present their work.